Development of a Model Program for Preparing Computer Science Teachers at the Secondary School Level

This project will deliver in-service training to 40 secondary teachers of mathematics, 20 participants attending each of two years. The participants will be selected from the greater Philadelphia area. The two-year project will provide courses in computer science, instructional design practicums, a series of workshops, and a series of networking sessions. A series of 1/2 day workshops for principals, presidents of the local parent support group, and teachers will be held prior to the beginning of the courses. Three courses in computer science will be taught for each group of participants. These courses will be: (1) A First Course in Computer Science (2) Structured Programming with Pascal, and (3) Advanced Programming Concepts. The Instructional Design course will allow the participants the opportunity to design and develop learning resources which they will use in their classrooms. The courses will be offered during the summer and the academic year. During the school year, monthly meetings will be held for the participants and those already teaching computer science courses. The meetings will provide further instruction and support for those teaching computer science.